Identification of Round Rotor Generator Stability Constants from Operating Data

9625662 Keyhani In the next few decades, the power systems of the United States will face bottlenecks in transferring bulk power due to the virtual absence of new transmission line construction. The increased utilization of existing facilities to cope with the growing magnitude of bulk power transfers and third-party access will require a closer look at system stability requirements. In addition, as more thyristor-based controllers, including phase shifters, advanced static VAR compensators, and modulator series capacitors, are used to control bulk power networks, accurate dynamic models of generators, will be required for precise control of bulk power transmission systems. Rapid development in computer technology has facilitated computerized instrumentation of power systems. In the next few years, power systems will be monitored and operated by many computers in a decentralized control structure. Computers will be installed in power plants to monitor the input and output responses of the generators. The operating responses can be used for the development of generator models and tracking of key parameters for incipient failure detection. The objectives of this project are to develop a new technology for identification of round rotor generator models based on operating data resulting from disturbances occurring in power systems. The operating data for this project will be provided by Arizona Public Service Company (APS) for Cholla and Four Corners units (see Section H for APS letter of support). Signal processing and system identification methods will be used to develop the technology for estimation of stability parameter of the round rotor generators from the operating data. The significance of the proposed research is that engineers at utility companies can use the proposed technology to develop generator models for use in power system control and stability studies. Furthermore, by tracking the machine parameters and turns ratio of stator and f ield windings, the incipient faults of synchronous machines can be detected in real time. Finally, the results of this research can be used by the power systems control engineers to accurately predict and control the dynamic performance of electronically-controlled future power systems. ***